Oceanographic Instrumentation

9619969 Greene This award to San Jose State University Foundation will provide a new echosounding system for use on the research vessel R/V Point Sur, operated by Moss Landing Marine Labs as part of the University National Oceanographic Laboratory System research fleet. The shared-use instrumentation supported here will assist ocean researchers conduct studies in the North Pacific Ocean in 1997 and in future years, and will be especially useful for studies along the California margin. ***